CAREER: Software Synthesis for Real-time Signal Processing Systems

A major challenge facing designers for digital signal processing (DSP) systems is the rapidly increasing complexity of deriving sufficiently efficient and predictable software implementations. In consumer-oriented application domains such as wireless communications and PC multimedia, extremely competitive time-to- market pressure together with the continually escalating complexity of applications and processor architectures require companies to sustain enormous human resource expenditures for software development. Similarly, in very high performance applications such as radar signal processing, it remains a significant challenge to partition programs and manage interprocessor communication in a manner that effectively exploits large-scale multiprocessor computer systems. Over the past several years, it has become widely recognized that dataflow is an attractive programming model for computer-aided DSP system design tools. This project is investigating algorithms that automatically or interactively map high-level, dataflow programs for DSP into efficient software implementations. Specifically, this research is exploring (1) a thorough integration of dataflow programming and imperative programming formats, and an efficient integration of techniques for compiling dataflow with the existing techniques for compiling imperative languages; (2) the development of automatic and interactive software tools for mapping dataflow models into implementations on multiprocessor architectures, with emphasis on efficiently managing the interactions between scheduling, interprocessor communication, and synchronization; and (3) the development of algorithms for compiling dataflow computations models into uniprocessor implementations in such a way that program and data memory requirements, invocation overhead of individual subprograms, and latency are optimized.